Collaborative Research: Quantitative Reconstruction of Paleohydraulics of the Kayenta Formation - Implications for Paleoclimate Reconstruction

Determination of paleoslopes in ancient fluvial systems has potentially broad, but
largely untapped, application to quantitatively constraining the history of tectonics and
paleoclimate in continental sequences. The objective of this project is to, first, flesh out a
new approach to calculating paleoslope and associated information, such as water and
sediment flux, from sandy braided stream deposits. The second objective is to apply the
method to the Kayenta Formation (Jurassic) on the Colorado Plateau to demonstrate the
utility of the method in reconstructing aspects of long-term climate change from the
ancient record of fluvial deposits found on a regional scale. The key to reconstructing
paleoclimate as proposed here is to estimate paleowater flux from estimates of paleoflow
depth (as determined from bar forms) and calculations of paleoslope. Paleoslope
calculation follows a novel approach utilizing the Rouse Number, an indicator of grainsize
fractionation between bed load and suspended load in water flows. The key tool to
applying the method is the use of high-precision, rapid, grain-size determinations
available using equipment housed at M.I.T. Preliminary results show the approach works
well in the modern and yields remarkably consistent comparisons with the Kayenta
Formation. Theoretical modeling of climate impact on fluvial systems suggests that longterm
climate change may produce a very different stratigraphic record than short-term
(Milankovich scale) changes. Hence application of the method to the ancient not only
provides an example of what the method can do, but will help answer specific questions
regarding how the long-term change from dry to wet to dry conditions represented by the
Wingate-Kayenta-Navajo formations of the Glen Canyon Group, respectively, affect
river systems. By systematically applying the methodology to the Kayenta Formation, we
will obtain statistically significant probability distributions of aspects of paleoflow (slope
and water flux) that can be compared between sites within the unit to show how river
systems changed down basin and over time. Such an application will demonstrate the
utility of the paleohydraulic reconstruction approach to paleoclimate reconstruction that
can be applied to other sandy fluvial deposits in the ancient record.
The broader aspects of the study include training a female Ph.D. student at the
University of Wyoming in quantitative methodologies of sedimentation. An
undergraduate at M.I.T. will also be trained in field and laboratory techniques as part of
this project. In addition, the research includes a tie to an NCED (National Center for
Earth-Surface Dynamics) facility, allowing for outreach of this NSF-funded Science and
Technology Center.